Partial Support of the Plasma Science Committee

This grant is for, "Partial Support of the Plasma Science Committee". It is for support of the Plasma Science Committee (PLSC) of the National Research Council which is charged with monitoring the health of the field of plasma science in the United States.